Fast Numerically Stable Matrix Algorithms

ABSTRACT
0204388
Ming Gu
U of Calif - Berkeley

The San Andreas Fault zone Observatory at Depth (SAFOD) Pilot Hole will provide an
excellent opportunity for exploring the relationship between fault slip and the thermal evolution
of the crust by studying core samples from varying depths using two complementary
thermochronologic methods. The Pilot Hole, located in Parkfield less than two kilometers from
the San Andreas fault will reach a depth of 2.1 km. The borehole will intersect Salinian granitic
rocks at a depth of less than 1 km and similar granitic rocks outcrop at the surface within a few
kilometers of the Pilot Hole. We will analyze samples from borehole cuttings at depth intervals
of 100 - 200 m and from the surface outcrops. We will determine the thermal history of the
samples using apatite fission track and U/Th-He thermochronometers.